Interannual variability of oxygen and macro-nutrients in the Labrador Sea

Recent observations and climate model projections indicate that the global oxygen inventory may be declining due to the lower solubility and the increasing stratification associated with a warming climate. Decomposition of organic matter in the deep sea consumes dissolved oxygen, which must be replenished by the circulation of oxygen-rich waters from the polar regions. Without vigorous oxygen supply from the high latitudes, the global oceans will lose oxygen.

In this study, researchers at Georgia Tech will use a hierarchy of models to simulate oxygen and nutrient cycling in the Labrador Sea, one of the regions of deep water formation in the North Atlantic, over a fifty year period. The Labrador Sea is also a region of extreme seasonality and intense biological productivity, thus oxygen cycling there likely reflects multiple physical and biological processes. Results from this study will promote a better understanding of the interannual variability of oxygen and nutrients in the Labrador Sea, and ultimately contribute to knowledge on how a changing climate impacts these cycles.

Broader Impacts:
The broader impacts of this project include student training, international collaboration and outreach to K-12 students.